Undergraduate Research Experiences in Membrane Sciences

This is a Research Experiences for Undergraduates Site Award at the University of Kentucky. The funds provide support for eight undergraduate students selected from candidates from nine colleges in Kentucky. Students participate in weekly seminars to discuss progress in their research, receive information of career opportunities, be exposed to recent advances in the literature in their fields of research. Undergraduate students will have the opportunity to attend professional conferences in their respective fields throughout the year, and will be encouraged to participate in the annual Regional Undergraduate Chemistry Research Poster Competition. Students participate in graduate research supervised by one of seven participating professors on various topics in the general area of membrane science. Students are selected for participation on the basis of grade point average, nomination by their home institution, and an essay on interest in the program and career goals. Emphasis is placed on recruitment from under- represented groups, for example, minorities, women, and handicapped persons.